Study of Ultrasound Doppler Spectra Statistics Signal to Noise Ratio & Pressure

This research has developed a very important and novel means of measuring blood flow. In a conventional Doppler flow measurement, the sensor and transmitter, which produces the ultrasound waves in the blood, must be positioned such that the sensors and blood flow must be nearly parallel. It is known that for angles close to 90 degrees, a small error in the angle leads to a large error in the flow estimate. However, this problem is resolved if one uses the method proposed here namely a "spectrum band-width" to estimate frequency. This technique of using spectrum band-width for velocity estimates opens up the previously inaccessible range of angles which are nearly perpendicular to the flow of blood. Placement of the sensor directly on the blood vesicle without having to bend the vesicle will greatly increase the utility and convenience of the measurement.